CAREER: An Integrated Experimental/Numerical Approach Toward Thermomechanical Understanding of Layered Surface Structures

The objective of the research under this CAREER award is to advance the basic
understanding of thermomechanically induced damage and deformation in layered
surface structures whose purposes are to provide engineering and electronic
materials with enhanced properties and functionality. Although often discussed
in terms of high temperature applications, there have been relatively few
investigations into the thermomechanical loading responses of layered surface
structures. In order to discover fundamental relationships between load,
damage, and failure, the proposed research will apply advanced experimental and
numerical techniques to the study of advanced thermal barrier coatings. The
improved understanding could have significant consequences in the continued
development of propulsion and energy conversion systems.

The education and outreach components of the project will focus on organized
high school visitations, undergraduate tutoring, undergraduate and graduate
mentoring, development of web modules, and course development. The PI's
interests in state-of-the-art technology and in how new discovery takes place
will be emphasized